GCR: Understanding and Interrupting Cascading Heat Failures Along the I-10 Corridor

Extreme heat is the deadliest weather hazard in the United States, and the Sun Belt is both the nation’s hottest and fastest growing region. The danger comes not only from the heat itself but from the chain reaction it can set in motion. During a heat wave, a power outage can cut off cooling and increase demand for hospital care. Heat-related limits on outdoor work can delay repairs. Repeated costs and service failures can trap households, making it costly to stay and hard to leave. These pressures can also make communities harder to insure and erode the revenues that fund local services. Yet research and practice remain organized around individual systems rather than the failures that move between them. This project will bring together researchers, practitioners, and community leaders from across the Interstate 10 corridor to map how heat-related failures move across systems and test which interventions can keep one disruption from triggering the next. Rural communities will be included alongside urban communities in developing and testing the model so that the analysis and resulting tools reflect differences in work, infrastructure, access to health and emergency services, and local governance. The project will help state and local governments identify early warning signs, prioritize resilience investments, protect public health and economic security, and maintain essential infrastructure and services.

The project uses a structured convergence process at Arizona State University’s Decision Theater to integrate atmospheric and geophysical sciences, heat-health science, infrastructure systems, labor economics, insurance analysis, and demography. Across both phases, studies will characterize heat regimes along the corridor, connect heat exposure and infrastructure failures to health outcomes, and combine national occupational data with AI-assisted classification and expert judgment to identify the job tasks most vulnerable to heat. Historical data, interviews, and workshops will inform analyses of insurance markets, migration, household burdens, mobility, and barriers to relocation. During Phase I, convergence convenings will establish shared definitions, reconcile data and metrics, map causal pathways, and produce a prototype model of cascading heat failures. In Phase II, survey, administrative, and environmental data will parameterize and test the model across the corridor. Researchers and practitioners will examine scenarios that combine prolonged regional heat domes with grid failure or insurer withdrawal and compare investments in cooling and infrastructure. Proposed system feedbacks will be retained, revised, or rejected based on observed timing and evidence across study locations. Embedded and external evaluation will document how disciplinary convergence is created and sustained. The project will train cohorts of convergence researchers and deliver a transferable framework and practical tools that state and local governments can use to identify cascading heat risks and compare interventions.